RET: Nanofabrication Training and Research Experience for Virginia Teachers

PROJECT SUMMARY
To meet the expanding need for nanotechnology workers, new nanotechnology education
programs, courses, and course modules must be developed and delivered to students at all
levels. There is a particular need for secondary science teachers to receive hands-on
nanotechnology training and research experience so that they are equipped to incorporate
nanotechnology principles and concepts into science curriculum. This proposed
Research Experience for Teachers (RET) project will provide a three-day hands-
nanotechnology training and research experience to 20 high school science teachers from
Virginia at the Penn State Nanofabrication Facility during late March or early April 2003.
This project will build upon prior investments by the state of Pennsylvania and the NSF
in nanotechnology education in Pennsylvania.
The Pennsylvania NMT (Nanofabrication Manufacturing Technology) Partnership was
initiated in 1998 by the state of Pennsylvania. It involves more than 30 colleges and
universities, secondary schools including vocational-technical schools, and private
industry. The NMT Partnership leverages the $26 million Penn State Nanofabrication
Facility, part of the NSF National Nanofabrication Users Network (NNUN), to provide
semester-long, hands-on nanofabrication education to students enrolled in associate
degree programs in nanofabrication at community colleges and other institutions across
Pennsylvania. The NMT Partnership also provides professional development workshops
for educators and industry personnel, and summer iunano campsln secondary school
students. The NMT Partnership is also a NSF Advanced Technology Education Center.
The NMT Partnership first began offering professional development workshops for
educators at the Penn State Nanofabrication Facility in 1999. To date, 169 educators and
industry personnel have attended these workshops. This proposed project builds upon
and expands the components of the Pennsylvania NMT Partnership associated with
professional development of educators, and will take the NMT Partnership beyond the
boundaries of Pennsylvania through an alliance with the Initiative for Nanotechnology in
Virginia (INanoVA). INanoVA is a statewide initiative involving higher education,
national laboraties, state and local education and economic development organization,
and private industry. INanoVA aims to promote collaborative nanotechnology research,
commercialization, and workforce education. The University of Virginia provides
leadership for InanoVA.
The University of Virginia will coordinate recruitment of 20 secondary science teachers
from Virginia for the proposed RET workshop, ensuring balanced geographic
representation across the state. Penn State will deliver the three-day nanotechnology
training and research experience at the Penn State Nanofabrication Facility. The project
will be managed by Penn State. The project has clear intellectual merit, as evidenced by
the role of the PI in leading the Penn State site of the NSF NNUN, the NSF Center for
Nanofabrication Manufacturing Education, the September 11-12, 2002 NSF Workshop
on Nanotechnology Undergraduate Education (NUE), and other nanotechnology research
and education activities. The project is expected to have broad impact on the science and
engineering workforce of Pennsylvania, Virginia, and the nation.